Collaborative Research: Long Term Continuous Monitoring of Pressure, Fluid Chemistry, and Hydrology in Instrumented Boreholes at the Costa Rica Subduction Zone

This project will continuously monitor the pressure, fluid chemistry, and hydrology in two instrumented boreholes at the Costa Rica subduction zone, using long-term observatories (CORK and ACORK) installed during ODP Leg 203. The field program will 1) deploy pressure gauges and data loggers, OsmoSamplers, and osmotic flow meters in 3 CORKed boreholes along a transect across the deformation front of the subduction zone and 2) retrieve the OsmoSamplers, data stored in the data loggers and deploying new OsmoSamplers and pressure gauges, with the submersible Alvin. The fluid stored in the OsmoSamplers will provide a continuous 1.3 year record of fluid conditions collected at in situ conditions at weekly resolution, in three distinct hydrogeologic systems. The first flow system is the upper oceanic crust of the incoming Cocos Plate, the second is the return of a deeply sourced fluid along the decollement and the third is in the underthrust sediment section driven by compaction dewatering. By documenting the nature of these hydrogeologic systems it will be possible to better understand the effects of fluid flow at convergent margins on the shallow thermal structure and fluid content of the downgoing plate, the physical properties of the subduction zone interface, deformation style and transport of elements to the oceans.